Partnerships Advancing Learning of Mathematics and Science (PALMS)

MASSACHUSETTS Governor: William Weld Principal Investigator: Susan Tave Zelman Massachusetts Department of Education 1385 Hancock Street Quincy, MA 02169 617/770-7505 Five-Year Award Request: $9,738,130 Partnerships Advancing Learning of Mathematics and Science (Project PALMS), seeks to improve science and mathematics educational opportunity and outcomes through policy, curricular, leadership and partnership initiatives. Program components include: 1. Producing the first-ever state curriculum framework for Massachusetts. 2. Hiring science and mathematics specialists by the Department of Education. 3. Implementing a new science and mathematics Master Teacher certification standard. 4. Using the state curriculum framework to develop curriculum alterations that will be activity-based with great potential for incorporating educational telecommunications networks and other technologies into the classroom. 5. Developing linkages between schools and colleges to align preservice and inservice curriculum with the state's framework. To support school-based change, leadership academies for teachers and administrators will focus on structural and organizational alterations that will foster continued educational reform at the school site. Partnerships with the media, informal education centers, business and industry, and community groups will coordinate a public awareness campaign on the importance of mathematics and science literacy.